Evaluation of Oxynitride Glass Fiber Reinforced Concrete

This project is an innovative one to investigate the feasibility of using an oxynitride glass fiber in concrete to increase the durability and strength of concrete structures.